KDI: 3D Knowledge: Acquisition, Representation and Analysis in a Distributed Environment

The PIs will develop a knowledge network for the acquisition, representation, query and analysis of 3D knowledge in a distributed environment. Assuming that most such knowledge is inherent in and derivable from 3D geometric structures, new capabilities and corresponding tools will be developed for combining, classifying and analyzing 3D objects and phenomena at variable scales. To achieve these goals, the PIs will focus on the understanding and development of mechanisms for mathematical modeling, discipline specific feature extraction, archiving, storage, querying, retrieval, matching, visualization and analysis of 3D data. They will develop a software library kernel, tools for data archiving, and an Internet-accessible interface to enable users to construct customized shape browser search engines. The work should have immediate application to important problems in the biosciences, in biotechnology, and in anthropology.